Doctoral Dissertation Research in Geography and Regional Science

Paleoecological studies have demonstrated that shifts in the transition areas between grasslands and forests have occurred in response to climate change, but few such studies have examined tropical or subtropical grasslands. This doctoral dissertation project will examine the Holocene vegetation dynamics of the southwestern Louisiana prairie, a subtropical grassland. Pollen, charcoal, and stratigraphic analyses will be used to reconstruct the vegetation history and to identify controlling factors in the development and maintenance of this subtropical grassland. Core of lake bottom sediments from Lake Arthur, an estuarine lake with a drainage basin entirely within the natural tall-grass prairie, will yield at least a 6000-year record. Vertical profiles from Prien Lake, with a similar origin but with a drainage basin outside the prairie, will be used to detect possible shifts in the grassland. This project will provide the first radiocarbon-dated pollen record of the southwestern Louisiana prairie and will be one of few data points for the entire American tropics and subtropics that contain a detailed Holocene history of savanna vegetation. It will provide a rare opportunity to examine the sensitivity of prairie vegetation to climate change in a subtropical context, thus adding to broader understandings of the effects of climatic changes. In addressing the factors of fire, edaphic control, and human disturbance, the project will add further to this understanding by answering questions concerning the origin and evolution of a southern grassland. This project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.